RUI: Gonadotropin Releasing Hormone Neuronal Systems

Gonadotropin-releasing hormone (GnRH) is a decapeptide that was isolated from brain in 1971. This hormone is released from neurons of the anterior basal forebrain which project through the ventral hypothalamus to the median eminence and act upon the pituitary to regulate the control of luteinizing hormone and follicle stimulating hormones. Thus, GnRH plays a pivotal role in ovulation and testosterone production. However, with the development of sensitive and specific antibody techniques, it has now become clear that GnRH neuronal network is a complex, heterogenous system, comprising three or more discrete neuronal groups and spanning vastly different regions of the brain. Projecting to targets within and outside the brain, GnRH serves as both a hormone and a neurotransmitter, and has multiple actions, on reproductive physiology and on species-typical behaviors associated with reproduction. Moreover, the GnRH peptides occur in at least five different molecular forms. Dr. Muske will examine a newly discovered population of GnRH neurons in the periventricular areas of the diencephalon. Using state-of-the-art neuroanatomical techniques, she will identify the targets and projections of the periventricular GnRH neurons for each of the different molecular forms. Dr. Muske will determine whether the periventricular GnRH neurons constitute an unique system, with independent embryonic origins and developmental history. Finally, she will assess the functional role of this system in the regulation of reproductive behavior and physiology. The results will provide new insights into the organization, function and mechanisms of action of the GnRH systems lying outside the endocrine hypothalamus. Moreover, many reproductive dysfunctions in humans result from a disorder in the GnRH system. For example, Kallman's Syndrome, a congenital disorder characterized by sterility and anosmia, is caused by a defect in the migration of GnRH neurons and hypogonadism, characterized by delayed puberty and sterility, results from GnRH deficiency. Fundamental information gained from this work may help facilitate the development of effective treatments for patients suffering from GnRH dysfunctions.